CRII: III: Buffer Management for Non-Volatile Memory

Fifty years of research in database systems has focused on a canonical two-tier
storage hierarchy with the volatile memory and durable storage technologies.
A database system's buffer manager provides efficient access to data stored
on storage by migrating it to volatile memory. The data migration policy
employed by the buffer manager in existing systems is predicated on the
assumptions that storage is orders of magnitude slower than volatile memory.
But emerging non-volatile memory technologies are poised to upend these design
assumptions. They provide fast accesses like volatile memory but with
persistent writes like storage. The traditional approaches for buffer
management are incompatible with this new hardware landscape. This project
outlines a research agenda to study and develop novel buffer management
techniques for non-volatile memory. The project will result in algorithms for
shrinking the cost of large-scale in-memory data processing. The key lessons
learned from this project will be integrated into the graduate-level course
on database systems at Georgia Tech, educating students about the challenges
and opportunities in non-volatile memory database systems.

The technical aims of the project are divided into three interacting research
thrusts. The first thrust develops a taxonomy of data migration policies for
volatile and non-volatile memory technologies. What makes this different than
earlier attempts is that the buffer manager will dynamically leverage all the
data flow paths enabled by non-volatile memory to improve the database system's
performance. The second thrust develops a machine-learning model for
automatically tuning the data migration policy for an arbitrary workload and
storage hierarchy. Due to the unique price, capacity, and performance
characteristics of non-volatile memory, it will be challenging for database
administrators to size the different levels of a multi-tier storage hierarchy.
The third thrust develops a storage system recommender to help administrators
identify the optimal hierarchy for their target workloads. These three
research thrusts will be complemented by a comprehensive evaluation plan.
This research effort will have a profound impact on the adoption of
non-volatile memory technologies and will enable cost-effective, large-scale
data processing.